MIRABU: A Mid-Infrared Array for Boston University

ABSTRACT This grant supports a design study for the mid-infrared spectroscopic and imaging camera system designated MIRABU (Mid-InfraRed Array for Boston University). The study will result in a complete, detailed design for MIRABU, a detailed cost estimate, and a detailed management plan for the construction and commissioning of the instrument.